CAREER: High-Performance Packet Processing with Programmable NIC Data-Planes

In today's data centers, network performance is surging, outstripping
the capacity of modern processors, and turning them into a performance
bottleneck for demanding data center applications. Examples of
applications suffering from this problem include the back end services
implementing Facebook, Google, Amazon, and other popular
websites. These services spend most of their time conducting network
input/output. As the gap between processor and network performance widens,
these services become less and less efficient. More efficient server
software can ameliorate the situation, increasing the performance of
applications while also reducing a data center's prodigious energy
consumption.

This project investigates a re-design of the server hardware and
software network stack, with the aim to streamline and improve network
I/O energy-efficiency. To do so, the project utilizes a new
programming model for energy-efficient packet processing in network
cards, called match-and-action processing. The approach allows
applications and operating systems to install packet processing rules
to the network card that instruct it to execute simple operations on
packets while transferring them to and from the host. This model is
highly energy efficient, yet allows to retain network protocol
implementation flexibility and compatibility with existing
applications.

The work has the potential for dramatic improvements in application
and server performance, as well as data center energy
consumption. Network intensive data center applications are used by
billions of people around the globe on a daily basis. By reducing the
overhead of networking, the hardware needed to support existing
services can be reduced, making it cheaper for new services to be
developed.

To evaluate the space of design alternatives, the project builds a
working prototype and an emulator capable of running standard server
applications. All source code, along with configuration files and
instructions for reproducing published measurements of the system,
will be made public and accessible from the project website at UT
Austin (http://www.cs.utexas.edu/~simon/flexnic). The website will be
actively maintained for the duration of the project.